CAREER: Dual-Axis Continual Learning for Adaptive Mobile Manipulation Skills in Household Environments

Some household robots are designed to help people with everyday activities such as cleaning, cooking, organizing, and assisting older adults. However, current robots struggle to adapt when they encounter new homes, objects, or tasks. In many cases, they must be retrained whenever conditions change. This project will develop new methods that allow mobile robots with manipulators to learn in ways that are similar to human learning: gradually acquiring, refining, and reusing skills over time. This project focuses on mobile manipulation, where robots must both move through environments and physically interact with objects. The research will enable robots to safely learn from small amounts of human guidance, improve through practice, and combine previously learned skills to solve more complex tasks. The project will also study how robots with different physical designs can share learning strategies with each other, accelerating adaptation to new situations. These advances could contribute to more reliable robotic assistants for homes, healthcare, and other human-centered environments. The project also includes educational activities spanning K-12 outreach, undergraduate robotics education, graduate training, and participation in the RoboCup@Home international robotics competition.

This project builds upon three key foundational areas: (1) the Partially Observable Markov Decision Process (POMDP) formalism to define mobile manipulation tasks; (2) Continual Learning (CL) to address the sequential, evolving nature of real-world household skills; and (3) an influential three-stage cognitive model to provide explicit guidance for structured skill acquisition. This research will develop a new continual learning framework for mobile manipulation inspired by theories of human motor skill acquisition. The framework organizes robot learning into three stages. First, robots safely acquire new skills from a small number of demonstrations and human feedback using safety-aware reinforcement learning methods. Second, robots refine those skills through active data selection, reinforcement learning in learned latent action spaces, and viewpoint augmentation methods that improve robustness across environments and robot positions. Third, robots generalize and recombine previously learned skills using structured memory mechanisms that support long-horizon task execution and determine when additional learning is needed. The project also introduces methods that separate robot-specific knowledge from robot-agnostic knowledge, enabling continual learning transfer across robots with different embodiments. The methods will be evaluated both in simulation and on real mobile robots with manipulators performing household activities in realistic apartment environments.